Opening the Box: Variable Accretion during Disk Evolution

Planets form in disks of gas and dust surrounding young, forming stars. Thus far, our population level understanding of how these natal environments evolve has relied on a steady-state closed box model of their evolution, despite observations of variable accretion behavior, ranging from the infall of star-forming material onto the disk in streams to bursts of accretion luminosity during occasional events of increased mass deposition onto the central protostar. The key objective of the proposed research is to understand the role of variability in the mass assembly of protostars and their disks during the star-forming phase. To this end, researchers from the University of Connecticut will build a disk evolution model framework that includes variable mass accretion from core to disk to protostellar scales. They will leverage the power of a population synthesis approach to compare the key demographic observables from these models to nearby star-forming regions and thus test disk evolution theory. The researchers will also integrate their efforts with an existing program at the University of Connecticut that helps improve the retention of students in physics by addressing key factors for their attrition: physics identity, academic and personal support, and feeling like they are part of the community.

The research will incorporate variable mass accretion in population synthesis models of both protostellar and disk evolution, starting with open source codes and opening the box to account for inflow of mass from large to small-scales. Building a demographic library across age and accretion history, the team will conduct parameter studies examining the effect of variable mass assembly for the two main proposed drivers of disk evolution: the viscous model and the magnetohydrodynamics wind-driven model. They will use the results of the parameter studies to build a combined model to predict observational signatures of variable mass assembly across both measured disk and stellar properties. The program is designed for iterative hypothesis testing and will yield rich datasets for exploration and interpolation. The final combined model framework will be used to generate observables of synthetic populations to compare with observations.